Conference: ExPet26 Workshop: A New Scientific Meeting for Experimental Petrologists in the US

Experimental petrology provides a foundation for models of the origin of Earth and other planets. This workshop will highlight research challenges and opportunities in experimental petrology. It will facilitate future collaborations especially among early-career scientists. By promoting teamwork, this workshop will accelerate breakthroughs. Participants will develop shared resources and promote the adoption of new technologies. The workshop will improve the rigor and visibility of the U.S. experimental Earth science community.

This team will gather experimental Earth scientists (petrologists) at a workshop, called “ExPet26”, to unify, strengthen, and develop their community, showcase recent scientific and technological advances, and discuss ways to share information, ideas, technology, methods, and equipment. The inaugural meeting will be held at the Earth and Planets Laboratory, Carnegie Institution for Science.. The workshop aims to transform this discipline in the U.S. by fostering a vibrant, collaborative, and innovative research community. The meeting will accommodate up to 80 in-person attendees and will also be hybrid. An expected outcome is a post-meeting volume in a peer-reviewed journal dedicated to experimental petrology. The conference will also facilitate access for scientists to relevant labs in the country, enabling a more efficient use of institutional and federal resources and existing infrastructure for collaboration and education. The planning sessions will help the U.S. experimental petrology community define its science objectives for the coming years, foster new collaborations with potential to develop innovative infrastructure in the future, and improve the competitiveness of U.S. Earth scientists internationally.